Development of a Biomedical Implant Center for the State of Alabama

9720157 LUCAS This award provides funding for establishment of an Alabama Biomedical Implant Center that will integrate research activities for 32 researchers from six Alabama universities. Primary goals for the proposed center include 1) basic research in biochemical, biomechanical and cellular responses elicited by the surgical implantation of a prosthesis or other material in the human body; 2) technology transfer from the universities involved to state and national industrial partners; and 3) research/training and industry internship opportunities for both graduate and undergraduate students. A developmental grant program will support pilot projects to obtain preliminary data and enhance the research competitiveness of collaborating faculty. Workshops and a newsletter are planned for dissemination of information about center activities and research results. The center is also anticipated to serve as a resource, providing laboratory facilities and technical advice for developing medical device companies. This center will be unique in its emphasis on integration of biomedical and tissue engineering research efforts. The partnerships with industry and emphasis on technology transfer, as well as basic and applied research, will contribute to both economic growth and development and the quality of health care in Alabama.